Epilimnetic cAMP: Dynamics and Modulation of PhotosyntheticCarbon Assimilation

This project will examine the importance of ambient dissolved and intracellular cAMP concentrations, relative to other physical and chemical factors, in regulating in situ photosynthetic performance in epilimnetic planktonic assemblages. Experiments conducted in eutrophic Sangre Isle lake will be used to accomplish the following objectives: (1) Develop a comprehensive seasonal and diel model of in situ cAMP dynamics in epilimnetic lake water. These experiments will use both previously published methods and novel HPLC and monoclonal antibody techniques to identify the key organisms driving cAMP dynamics; (2) Test the hypothesis that seasonal and diel phytoplanktonic PCA rates are influenced by naturally-occurring dissolved or particulate cAMP concentrations; (3) Using the activated charcoal method for cAMP removal from lake water developed under previous funding, test the hypothesis that removal of naturally-occurring cAMP from lake water alter planktonic PCA rates, and that readdition of cAMP restores PCA rates to nominal levels; and, (4) Conduct membrane polarity and proton translocation experiments, on planktonic isolates from Sangre Isle Lake to test the cAMP electrogenic regulation model in natural planktonic assemblages. These experiments should determine if cAMP is an important regulator of phytoplankton production in aquatic systems.